Large-Scale Multinomial Inference and Its Applications in Genome-Wide Association Studies

The investigators study statistical analysis of multinomial counts with a
large number K of categories and a small number n of sample size. This
"large K and small n" problem is a very challenging problem that requires thinking about statistical inference at a fundamental level. Employing an auxiliary data-generating approach to reason directly toward probabilistic inference , the PIs develop methods that are probabilistic and have desirable frequency properties. A sequence of topics to be investigated include 1) one-sample and two-sample "large K and small n" multinomial inference; 2) large-scale simultaneous hypothesis testing; 3) application in genome-wide association study; and 4) associated efficient computational methods.

The "large K and small n" multinomial inference is motivated by genome-wide
association studies with a large number of genotypes from single
nucleotide polymorphisms (SNPs) data. SNPs are major genetic variants that may
associate with common diseases such as cancer and heart disease. With new
statistical methods and computing software to be developed in the project, the
research is expected to generate useful tools for applied statisticians and
scientists who are challenged by very-high-dimensional count data.